CEDAR: Observational and Numerical Studies of the Momentum Budget of the Extratropical Summertime Mesosphere

The PI will combine the Upper Atmosphere Research Satellite and radar data to gain information on circulations and momentum sources/sinks in the mesosphere and lower thermosphere (MLT). By properly combining radar and Wind Imaging Interferometer measurements with High Resolution Doppler Imager winds, the PI can determine the MLT transport circulation directly from global wind observations. In addition, improved estimates of gravity-wave driving will allow improved simulations of circulation systems in the MLT region and at stratospheric levels. Finally, results from this research will be important for estimations of mesospheric winds from thermal data.***